Forming of Ceramics During Firing without the Application of External Pressure

Forming ceramics into complex shapes has traditionally been accomplished by slip casting, injection molding, hot pressing, and machining. The subject of this proposal is a forming technique to shape thin ceramic bodies by introducing strains into the component during the firing operation, without the application of external pressure. The method can be considered a synthesis of mold-based and hot-forming methods in that while molds are not needed, complexity in a component is realized by operating at high temperature. The feasibility of this technique has been demonstrated by applying a chromia coating onto thin alumina substrates to deform the originally flat sample into an arc shape and into a ceramic wave spring. Preliminary calculations suggest that the internal stress that drives the deformation arises as a consequence of cation diffusion from the coating into the substrate.
%%%
The outcome of the research efforts proposed here will provide for a scientific understanding of this ceramic shape forming process, which in turn will lead to more wide-spread examination and possibly use of the methodology as a forming method. The potential advantages of such a forming method are that the costs of molds and machining can be eliminated and that a more rapid manufacturing process may be realized. These two advantages may help to advance the penetration of advanced ceramic materials into more widespread applications.